Strengthening Underrepresented Minority Mathematics Achievement Through A Consortium of Middle School and High School Intervention Projects (SUMMAC)

The MAA, through its project SUMMA (Strengthening Underrepresented Minority Mathematics Achievement) proposes the development of a national consortium of mathematics-based intervention projects aimed at strengthening the existing 50+ projects and increasing the number of projects by at least 10 each year. The Consortium will provide networking opportunities for mathematicians, mathematics teachers, and mathematics educators, building on the structure of the 33,000 member MAA. Activities include workshops to be held at regional section meetings, the training of undergraduate students as counselors, and dissemination of information through presentations at national meetings and a newsletter. In addition, a handbook on how to start and conduct an intervention project and a directory of existing projects are to be produced and widely distributed. By the third year of the project the Consortium is expected to include 90 or more projects and 7,000 newly recruited minority students with their teachers as participants. The long range goal is to increase the number of minority students reached by mathematics-based intervention projects in the year 2000 to more than 15,000.